Quality Laboratory Instruction for the Undergraduate Chemistry/Biochemistry Major in Analytical Techniques and Research Capabilities

The recent acquisition of an Atomic Absorption (AA) Spectrometer by the Chemistry Department at Chestnut Hill College is significantly broadening the laboratory experience and improving the instruction of undergraduate students majoring in chemistry and biochemistry. The experience of working with an AA Spectrometer is of increasing importance to chemistry and biochemistry majors, whether they seek employment in analytical laboratories or plan to pursue further research in graduate school or industry. The introduction of this technique into advanced organic, biochemical, and instrumental courses ensures that the college's graduates receive the training necessary for careers as chemists and biochemists.